Adults Supporting Kids with Science (ASK with Science)

9801940 Dierking The Institute for Learning Innovation, Inc., requests $264,904 to pilot a project for establishing a national program to provide parents and significant other adults with support, training and materials. Also, the project goals will enable parents and other adults to become actively engaged in local science education reform and science literacy for their children. The duration of this project is eighteen months. The cost sharing for this NSF award is 24.6% of the total projected cost of the project. The Institute for Learning Innovation, Inc. will collaborate with the YWCA of Annapolis and Anne Arundel County, Boys and Girls Club of Annapolis and the Arundel County Public Schools' Family Involvement Center. Project "ASK with Science" will develop a model program for implementing and disseminating science education materials to young children in underserved communities, thereby creating a grassroots, family-oriented program that can become established in the local communities served by these organizations.